Mathematical Sciences: Bifurcation of Periodic and Homoclinic Orbits

Two problems are considered. The first concerns the stability of periodic solutions to delay equations with negative feedback. These equations arise in such fields as population biology, physiology and optics. The second problem concerns the study of heteroclinic and homoclinic orbits representing traveling wave solutions of reaction-diffusion equations. These equations arise in the study of nerve impulses, flame propagation and phase transitions